Differential operators, invariant theory, and homological methods in the study of singularities

This project is focused on various related questions in commutative algebra: at its essence, this discipline is the study of polynomial equations in many variables and the local geometry of their solution sets. Systems of polynomial equations are important not only because they arise naturally in many places, but also because in many situations, more complicated systems are best approximated by polynomial equations. Through a range of related projects, the PI will investigate the relationship between symmetry in polynomials and the small-scale geometry of their solution sets. In addition, this project will provide research training opportunities for students.

In more detail, the PI will study singularities of rings of invariants via differential operators. Rings of invariants are known to exhibit good singularity-theoretic behavior in various aspects. The PI will investigate the behavior of rings of differential operators on rings of invariants, along with related problems on singularities of nullcones, and higher cohomological invariants arising from differential operators. The PI will also undertake a range of broader impact activities, largely centered around training of graduate students and increasing participation in mathematics by high school students.